Mathematical Sciences Research Equipment, 1989

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Science Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used to support three research projects in the Department of Applied Mathematics and Statistics and the Institute for Mathematical Modeling at the State University of New York at Stony Brook: Nonlinear Waves and Nonlinear Materials, directed by James Glimm, John Grove, Thomas Hagstrom, and Ram Srivastav; Stochastic and Deterministic Inverse Problems, directed by Yung Ming Chen, Michael Taksar, and Cunhui Zhang; and Mathematical Biology, directed by Edward Beltrami and Reginald Tewarson.